Administrative and Security Guard Services from the State Department for the May Annual Awards Dinner

Administrative and Security Guard Services from the State Department for the May Annual Awards Dinner